Constraints on the Evolution of Disease Resistance in a Native Legume

Plants in both natural and agricultural ecosystems are subject to attack by disease-causing microorganisms. Recent studies of plants in natural ecosystems have revealed that plants possess a range of different mechanisms of disease resistance toward pathogens. However, the effectiveness of resistance often varies considerably: some plants exhibit strong resistance, while others are highly susceptible to disease. The proposed research seeks to understand why plants in natural communities have not always been successful in evolving mechanisms to prevent pathogen attack: what types of constraints have been most important in preventing the development of effective disease resistance? The project will focus on disease resistance in one plant species, the native legume Amphicarpaea bracteata. The intensive study of non-cultivated plants and their pathogens provides the opportunity to develop general insights about principles of plant adaptation to pathogen attack, in particular, the physiological and genetic factors that limit the evolution of disease resistance. Studies of disease problems faced by plants in natural ecosystems may thus be useful also in designing more effective strategies of disease control in agriculture.